SGER: Magnetic Effect on Ion Exchange Treatment of Electrolyte Solutions

0211450 Kney The objective of the research is to investigate the combined effects of ion exchange and magnetic fields in the treatment of synthetic waste streams containing heavy metals. Specifically, column chromatography will be used to examine the magnetic field effect on the kinetics and selectivity of selected ion exchange materials in electrolyte solutions containing multiple cations. The electrolyte solutions will contain the five cations, lead (II), nickel (II), cadmium (II), copper (II), and zinc (II). The effects of ion concentration, ion-exchange material, magnetic field intensity, and the method of magnetic exposure will be examined. This research could provide information to advance the fields of water and wastewater treatment. ***